Combinatorics and Number Theory IV

This proposal contains three projects, in number theory and its
applications to combinatorics. The first project concerns the
arithmetic of modular forms for noncongruence subgroups. For
noncongruence subgroups whose associated modular curves have a model
over the rationals, Atkin and Swinnerton-Dyer suggested very
interesting congruence relations on the Fourier coefficients of cusp
forms which are meant to replace the Hecke operators. On the other
hand, Scholl has attached Galois representations to the space of
noncongruence cusp forms. The ASD congruences together with the
modularity of Scholl representations yield extremely interesting
congruence relations between the Fourier coefficients of congruence
and noncongruence forms. Some examples were constructed by the PI
and her coauthors. Continuing her joint work with coauthors, the PI
plans to apply the modularity lifting theorems to investigate when
Scholl representations arise from Hilbert modular forms, and to use
the modularity result and ASD congruence relations to establish the
conjecture which says that the Fourier coefficients of genuinely
algebraic noncongruence forms have unbounded denominators. The
second project is to construct zeta functions of complexes arising
from finite quotients of the Bruhat-Tits buildings. Such zeta
function should be a rational function which encodes topological and
spectral information of the complex, and which satisfies the Riemann
Hypothesis if and only if the complex is Ramanujan. When dimension
is one, this is the Ihara zeta function attached to a graph. In a
very recent work, the PI and a PhD student did the 2-dimensional
case. The PI proposes to explore the general case. The third project
concerns low-density parity-check (LDPC) codes. The LDPC codes are
equipped with very efficient decoding algorithms, which make them
highly desirable in real world applications. The source of decoding
errors is the pseudo-codewords. One way to understand these
pseudo-codewords is to construct a suitable infinite series, called
a zeta function, with each term corresponding to a pseudo-codeword.
Such zeta function should be a rational function with good
combinatorial property. This was done indirectly in a joint paper of
the PI. The PI proposes to pursue a more direct approach.

It has been the PI's long term research goal to do fundamental
research in number theory and to seek applications of number theory
to combinatorics and coding theory, especially to solve real world
problems. The study of interplay between these areas has turned out
to be quite fruitful. This proposal is a continuation of
the PI's effort to pursue the same general theme. Part of the research
will be carried out by the PI's Ph D
students. The results from this proposal will be disseminated
broadly through the talks given by the PI in seminars, colloquia,
conferences, short courses, and workshops. They will also be
incorporated in the graduate courses taught by the PI. Weekly
informal seminars will be conducted to integrate research with
education and teaching. A conference is planned in 2010 to
disseminate results from this project.